TWC: Medium: Towards a Formally Verified Web Browser

The web browser is ubiquitous and indispensable. It runs applications
like social networking, business productivity, and online banking, and
promises isolation policies that keep these applications secure when
run side-by-side. Because of its crucial role, we would like the
browser to be robust and secure against attack; but in fact browsers
are fragile. They are complex pieces of software with rich features
that allow for flexibility and programmability, and even small bugs
can make the browser vulnerable to attack. Indeed, browser
vulnerabilities have been used to infiltrate the internal networks of
American defense contractors and leading tech firms. Attempts to
improve browser security are often ad-hoc engineering efforts; and
even when formal guarantees are provided, they come in the form of
proofs over a model or idealization of the browser, not the browser
itself. A buggy implementation can invalidate intended guarantees and
leave users open to attack.

The goal of this project is to build a browser inside the Coq proof
assistant, along with a proof of its correctness. Unlike previous
research efforts, the proof covers the actual browser implementation
rather than a model or abstraction. This provides extremely strong,
precise guarantees about the security properties of the browser. The
proof is made tractable by focusing the verification effort to a small
browser kernel, and running legacy code in a sandbox to render
web pages. In this way, the browser can provide meaningful isolation
guarantees even when the legacy code that renders web pages is
untrusted and potentially buggy.

This project will provide:
* For users of the web, browsers that are more reliable and secure;
* For software developers, a new approach for developing high-assurance systems;
* For researchers, a framework for formally reasoning about security policies;
* For students, security and formal methods education.